A Book on Refal Supercompiler

A monograph summarizing the program transformation work carried out by Dr. Turchin will be written. The programming language REFAL will be described in the book. New techniques for program manipulation, specifically, equivalence transformation of programs, program specialization, optimization and verification will be treated. Publication of a monograph will make information on this important line of work more readily available.